Las Cuevas Research Station: A Unique Resource for Understanding Transitions, Disturbance, and Resiliency in Tropical Ecosystems

Las Cuevas Research Station (LCRS) in western Belize was built in 1995 and has already compiled an impressive list of scientific accomplishments related to tropical ecology, disturbance ecology, ecological transitions, and forest conservation. This station has hosted numerous international researchers and educators. Funds received in this award will support the purchase of research and communication equipment. Current long-term studies include but are not limited to: the effect habitat transitions on carnivore densities; effects of disturbance on butterfly populations; the impact of biological perturbations in the form of competitor removal in insect communities; the impact of harvest on reproduction in the non-timber forest product (NTFP), xaté; Project Anuran monitoring program; and a harpy eagle reintroduction program. This project will also establish international partnerships with the Government and University of Belize (UB), the Royal Botanical Garden of Edinburgh, and Maya Forest Enterprises, fostering collaboration and information exchange. Video conferencing will link the partner universities and distance learning will be disseminated more broadly through collaborative agreements. The proposed improvements to the facility will therefore benefit the multiple users (researchers, educators, students, local Belizeans), foster informational and cultural exchange, and increase research productivity.